Modernization of Two University Meteorology Centers: A Unidata Equipment Grant Proposal

Embry-Riddle Aeronautical University requests support to modernize its meteorology centers located in Florida and Arizona. The upgraded centers will enhance undergraduate instruction in meteorology and aviation weather as wells as graduate education and scientific research. ERAU seeks to acquire two high capacity Unix servers to perform data ingest functions and to serve data to multiple workstations at both weather centers and the entire university. Along with the Unix servers, the purchase of additional hardware will increase the data hard disk space and provide a tape drive and CD-writing devices for on-line storage and permanent archiving of data. This equipment will further enhance the education and training of students in cross interdisciplinary research across ERAU departments and campuses.